Heme Proteins in Sulfide-Oxidizing Bacteria/Mollusc Symbioses

Several bivalve molluscs from sulfide-rich sediments harbor sulfide-oxidizing bacteria in gills as intracellular symbionts. Symbionts oxidize reduced sulfur and synthesize organic compounds for translocation to the host. To maintain intracellular oxygen and sulfide at levels conducive for bacterial autotrophy, the host must prevent spontaneous reaction between oxygen and sulfide and avoid sulfide inhibition. In symbiont-harboring gills and in free- living sulfur-oxidizing bacteria, mechanisms for this include hemoglobins, flavohemoproteins and cytochromes. Three purified cytoplasmic hemoglobins from Lucina pectinata gills exhibit vastly different reaction rates with oxygen and sulfide, suggesting distinct functions. Studies with living gills suggest that ferric Solemya velum hemoglobin reacts with sulfide whereas ferrous Solemya reidi hemoglobin may mediate sulfide reduction of symbiont cytochrome c. To define heme protein function in symbiotic associations and to study hemoglobin-mediated sulfide reduction of cytochrome c, biochemical characteristics of purified heme proteins will be established and used as tools to selectively identify and block individual heme proteins in living gills while measuring levels of cytochrome c reduction and rates of oxygen consumption and carbon fixation. These experiments will highlight the molecular mechanisms that have ensured intracellular transfer of oxygen and sulfide to their sites of consumption.